Replacement Economy Problems Under Capital Rationing

Many real replacement problems (e.g. vehicle fleets, manufacturing machines, pavement segments) face budgets on capital expenditure. Only a certain level of funding is available for maintenance and replacement. Despite the richness of the replacement literature, there exist few studies which address the effect of capital rationing on replacement decisions. When budgets are ignored and each asset analyzed separately, capital expenditures, in aggregate, can fluctuate wildly and substantially exceed yearly budgets constraints. This research studies two environments, with replacement of parallel assets under capital rationing constraints will be investigated: (1) with future technological changes, and (2) with Markovian deterioration. For the latter, both deterministic and stochastic deterioration assumptions will be addressed. The approach is to use integer programming for deterministic problems and a combination of integer programming and Markov decision processes for stochastic problems.